The Development and Structure of Visual Cortical Maps

IBN 98-08364 GOODHILL How humans see the world is one of the oldest and most fascinating questions in the whole of science. Flickering patterns of light entering the eyes are somehow converted into the vivid perception of a familiar face or a spectacular sunset. How our brains perform such a transformation is currently an area of intensive research. The primary goals of this research are to build more intelligent machines that can do their own visual processing, improve the treatment of people who have vision problems, and ultimately give us a deeper insight into ourselves. One of the most important clues to how we process visual information is the structure of the biological networks that our brains use to perform this task. A key staging post between our eyes and our perceptions is a region of the brain called the primary visual cortex. A fascinating characteristic of this region is that information from the two eyes is kept neatly segregated: half of the nerve cells it contains deal with information from the left eye, and the other half deal with information from the right eye. However, these two separate systems are finely intermingled in a pattern of stripes. There is a regular alternation between bands of cells which handle left eye information and those that handle right, rather like the regular alternation between black and white on a zebra skin. Like a zebra skin, these stripes occur in curving and branching patterns. Remarkably, every single person has their own unique pattern of bending and flowing in these stripes, rather like the way each person has their own unique fingerprint. Like fingerprints though, all humans have a roughly similar overall structure to this pattern. This overall structure is quite different in different species of monkeys. Why is this? Why does this highly distinctive pattern in the structure of the visual system vary so much among species and among individuals, and what does this tell us about differences in visual proce ssing in each case? Dr. Goodhill will address these questions by simulating the formation of these stripe patterns in a computer. The ingredients of the simulations are mathematical rules that describe how these structures develop during early life, and constraints on these rules that aim to describe what is different between different species. The ways in which these rules and constraints need to be adjusted to explain the stripe patterns in different species will provide important information about what makes the visual systems of humans and monkeys different among species. This work will contribute to a deeper understanding of the fundamental principles governing the structure of biological visual systems, and thus give insight into how one might build an artificial visual system.